MAX '91 Coordination and High Time Resolution Studies of Solar Activity

The proposal MAX '91 plans to study solar activity during the period of solar maximum 91-94 with emphasis on coordination of observations from existing facilities, as well as from new balloon, rocket and ground-based instrumentation. Alan Kiplinger has acted in the capacity of Max '91 Coordinator and has conducted three major worldwide campaigns in the last few years. He supported several rocket flights, and set up a near- real-time solar computer data base at NOAA's Space Environment Laboratory. The investigator proposes to continue to carry out coordination of the Max '91 program during the remainder of solar maximum by operationally supporting several new major campaigns, rocket and balloon flights and "target of opportunity" campaigns. This support includes distributions of Campaign Announcements with planning information,as well as Campaign Summaries which provide plots and lists of solar activity and compilations observations conducted worldwide. The Coordinator also proposes to continue to develop new products and data bases which can be used by and distributed to the scientific community. An example is development of a digital archival system to capture 5,500 digital images per day from the five fulltime U.S.A.F. SOON observatories located around the world. These data should become a significant cornerstone of observations for studies of flares triggering, flare build-up and energetics, as well as active region evolution. A vigorous pursuit of independent research by the Coordinator has proven to be beneficial to Max '91 as well as to his long-term research goals. Accordingly, a variety of studies with the High Speed Ho Camera system also are proposed. These studies include new observations of impulsive flares in pursuit of electron time of flight effects. Other proposed studies include optical observations of formations of active filaments, microwave spike bursts and an upgrade of the system to obtain measurements of linear polarization in flares with a temporal resolution of 0.4s.